Mathematical Sciences: Stochastic Processes and the Theory of Mathematical Finance

The principal investigators will work on problems in stochastic differential equations and stochastic control with applications to mathematical finance. This will include a study of the problem of general equilibrium in complete markets and how market characteristics are affected by the preferences of the individual agents. Mathematical studies of investment theory are important for strengthening the infrastructure of the economic sciences. A reasonable theory of small investor behavior in a continuous time financial market is one example of how mathematics can successfully contribute to outstanding important economic problems.